The Dynamic Performance of Nonlinear Vibration Absorbers

Abstract

Steven W. Shaw and Alan G. Haddow, Michigan State University
Proposal Number 0084947
The Dynamic Performance of Nonlinear Vibration Absorbers

The objective of the proposed work is to gain an improved understanding of
the dynamic response and performance of systems that utilize multiple
vibration absorbers and to distill this knowledge into design guidelines.
Of specific interest are centrifugally driven pendulum absorbers that are
used for reducing torsional vibrations in rotor applications. These
absorbers consist of masses that are suspended from the rotor in such a
manner that their motion counteracts the effects of fluctuating torques that
act on the rotor. This study employs both analysis and experimentation of
such absorbers. The analysis focuses on mathematical modeling and the
application of predictive techniques, including perturbation methods and
symmetric dynamic bifurcation theory. The desired performance of absorbers
is achieved by proper selection of design parameters that are included in
the formulation. Experimentation is carried out on an existing torsional
vibration facility that allows for control of the mean rotor speed and
fluctuating torque components. Specific topics being investigated include:
the application of absorbers to reduce vibrations in rotating beams, the use
of absorbers for shake reduction, the avoidance of localization in absorber
systems, absorbers for multi-harmonic excitation, and the transient
performance of absorbers. By systematic investigation of nonlinear
behavior, instabilities, and vibration localization, this study offers
strategies for avoiding effects that limit the performance of absorber
systems, and the results are used to provide useful recommendations for
implementation of systems of absorbers in rotating systems.
*******************************************************************